FIRST Place -- Interactive Kiosk in Public Place Installed With Math and Science Software

This award provides support for Mr. Kamen to explore the feasibility of developing an interactive educational kiosk (to be named FIRST PLACE), programmed with electronic mathematics and science games and placed in out-of-school area such as shopping malls to reach K-12 children. Students would play the games and be rewards with coupons. This multi- disciplinary project would expand students access to science and mathematics, the learning into the economy, and present learning as a leisure time activity.